REG: Intereference Microscope for Mechanical End Face Seal Research

9412172 Williams A vertically scanning interference microscope will support research on the tribological processes occurring in mechanical end face seals. Its primary use will be as a full-field topographical measuring device to fully characterize the conditions of mating seal surfaces of different materials and operating under different condition. ***